Associates in Residence at Education Development Center

ESI 94-53892 Deborah Bryant Educational Development Center Newton, MA Associates in Residence at EDC EDC seeks to address the problem of broadening the base of mathematics educators who can design and then execute successful teacher enhancement projects--especially projects originating from ethnic and geographic communities hitherto under-served by NSF. To this end, EDC plans to develop an "associates-in-residence" program that would allow mathematics educators to spend a non-trivial period of time at EDC in order to observe and participate in the life of some of EDC's on-going teacher enhancement projects . Such a residential program would serve to provide the associates with both the intellectual, as well as the "nuts and bolts" background needed to design and direct viable projects of their own. The present project is a 6-month planning project that includes a small pilot version of such a program. The project invites 2 mathematics educators from under- represented and under-served groups to spend 5 weeks at EDC during Summer 1994 to observe and participate in the work of 3 of its teacher enhancement projects. In addition, project staff provides support to the 2 associates in designing their own projects, and writing proposals to fund them. The in-kind contributions from non-NSF sources equal 8% of NSF's contribution.